Oceanographic Instrumentation 2018 - UGA/SKIO RV Savannah

A request is made to fund Oceanographic Instrumentation for the Research Vessel Savannah, a 92-foot coastal research vessel, owned and operated by Skidaway Institute of Oceanography as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. With this proposal, Skidaway provides technical descriptions and rationale for the acquisition of the following Oceanographic Instrumentation:
Vertical Profiling CTD/Fluorometer Upgrades $24,347
Network and DAS Upgrades $6,813
TSG Upgrade $12,812
Deck Incubators $5,513
$49,485

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.